Video Case Studies of Extended Investigations in Science

9553896 Zubrowski The project will develop a set of video and print materials to inform and support teachers' understanding of hands-on elementary science teaching and learning. The materials are designed for use in in-service teacher education, preservice education, science center or museum training, and community-based programs. The project will build on work of a previous NSF-supported project by Zubrowski that is producing a series of eight video tapes that depict students engaged in the free exploration of various science phenomena. The follow-up project, in response from reactions from teachers and teacher educators using the pilot material, will produce four half-hour videos that will illustrate a complete teaching/learning cycle where students explore a single phenomenon and continue on to develop and apply conceptual understanding related to the phenomenon. In the new material, the students will interact with materials and phenomena in a design engineering/inquiry science investigation.